Workshop on Maintenance Science; to be held Austin, Texas, April 17-19, 1996

9612577 Ling This proposal is to organize a workshop on Maintenance Science. The purpose of the proposed workshop is to identify the research areas that need to be addressed to advanced to advance maintenance system and operations, and product life-cycle modeling. A comprehensive agenda for maintenance science research to focus on closing the science/technology gap will be developed and shared with researchers and practitioners in the research and industry communities.